Computer Science and Mathematics Scholarships-Focus on Baccalaureate Studies

Proposal #: 0220509
PI: Will Briggs
Institution: Lynchburg College
Title: Computer Science and Mathematics Scholarships-Focus on Baccalaureate
Studies

The objective of the program is to recruit, educate, support, and graduate students with financial need who are pursuing academic majors in, and subsequently careers related to, computer science, and mathematics. The project responds to both institutional priorities and the national need for individuals within these disciplines. The program supports 21 students annually for four years. The program consists of comprehensive recruitment and academic support programs, and appropriate career counseling programs targeting students majoring in computer science and mathematics.

The CSEMS scholars are supported through activities that involve students in research, extensive internship program, and aggressive career services.